Electron Microscopy of Isolated Histone Genes

The proposed research is a study of the effects of developmental regulation on the protein composition and chromatin structure of specific eukaryotic genes. A novel isolation technique, nucleoprotein hybridization, enables the enrichment and subsequent study of chromatin fragments of the developmentally- regulated sea urchin early histone gene repeat (SUEHGR) from S. purpuratus. These five genes undergo a coordinated switch in expression during embryonic development. The genes have been enriched to greater than 90% purity without noticeable nucleosome loss or rearrangements, nor degradation of DNA or protein. Electron microscopy will determine the disposition of nucleosomes and non-histone proteins along SUEHGR and the folding of the nucleosomes into 30 nm chromosome fibers. This will be the first direct study of the structure of a specific gene during embryonic development. The results should be a major contribution to our understanding of the mechanism of eukaryotic gene regulation during embryogenesis.